Oceanographic Instrumentation

The Moss Landing Marine Laboratory (MLML) requests funding to purchase shipboard instrumentation in support of NSF-funded research. The Instruments will be used aboard the R/V POINT SUR, a 135 foot vessel, which is owned by NSF and operated by the University. The PI requested funding to purchased a rosette system and controller, a multiple corer Niskin bottles, and a shipboard computer. The instrumentation was requested to provide adequate support for NSF-funded scientific research.